Workshop on Interdisciplinary Macromolecular Science and Engineering

9714024 Stupp In order to take advantage of opportunities offered by macromolecular science and engineering, it is timely and technologically important to examine future projects in this broadly cross-cutting area. For this purpose, a two-day workshop will be conducted at NSF headquarters with the participation of about 50 scientists and engineers to identify important research directions and opportunities in interdisciplinary macromolecular science and engineering. This workshop is organized by a committee of six individuals representing academic and industrial perspectives on the subject, and having expertise in areas such as physics, chemistry, biology, and materials science and engineering of macromolecules. The following five topics have been identified for study and debate among workshop participants following input from a broad cross-section of the technical community: 1) novel macromolecular structures: synthesis and function, 2) innovation in properties of polymeric materials through processing, 3) the solution of environmental problems through macromolecular science and engineering, 4) macromolecular science and engineering at the interface between biological and physical sciences, and 5) the translation of macromolecular discoveries into technologies. Additional issues to be studied by the participants include mechanisms that could catalyze the scientific and technological development of interdisciplinary macromolecular science and engineering, the industrial and international context, and very importantly the educational challenges that must be faced. In addition to five sub groups of 6 to 10 participants to discuss each topic, the workshop would include six plenary speakers on general and specific issues, including P.G. de Gennes, a Nobel laureate from France recognized for his seminal theoretical work in polymer science. Followi ng the workshop, the organizing committee will report to NSF staff on the recommendations of the entire group and will subsequently publish a final report. %%% This workshop is funded by the Office of Multidisciplinary Activities (OMA) of the Directorate for Mathematical and Physical Sciences (MPS) and is also sponsored by Programs and Divisions in the Directorates for Engineering (ENG), Biological Sciences (BIO), and Education & Human Resources (EHR). ***